Theoretical Physics

Research in theoretical elementary particle physics will focus on the
properties of nuclear matter in extreme environments, such as high
temperatures or high density. Phase transitions are expected in these
situations between conventional matter approximating the interior of a
large nucleus and new, highly exotic large-scale states of matter in which
there may be superfluidity, superconductivity and plasmas of unconfined
quarks and gluons, the constituents of nuclear matter. Computer
simulations as well as precise, analytic methods based on the theory of
symmetries, will be employed to search for these new phenomena. These
studies are important because they may tell us about conditions in the
early universe.